The Ethics of Computerized Decision Procedures: Uncovering Biases and Value Assumptions

The aim of this project is to explore the ethical issues that arise when computer decision procedures (which can also be thought of as computer models) are applied in decisions affecting the public interest. These systems have become pervasive; examples include air-traffic control, forest service planning, military conflict simulations, and so forth. The development and use of these models raise ethical issues, but these issues are often hidden by the technical nature of the models. In this project, the investigators will examine two real world cases; one will be computer decision procedures (CDPs) used in pension plan decision making. This investigation will identify, classify, and analyse ethical issues in the development and use of these models. It will search for generic issues that are likely to be common to many models, and explore ways to ensure that the ethical issues are addressed in the future. The analysis will examine ethical issues that arise for the designers, the decision makers, and the public. With respect to each group, analyses will be developed from the standpoint of different ethical theories and frameworks, and their implications for action will be identified. This process can lead to suggestions for change in policy or procedure for modellers and modelling. For example, a concern for paternalism and consent would lead to the recommendation that CDPs be developed in ways that are transparent to clients or users. Results will include presentations at professional society meetings and publications in appropriate journals. The topic of this proposal is of highest priority for Ethics and Values Studies. The qualifications and track record of these investigators are excellent. The project provides an important test for theories and methodologies to study ethical issues in development and applications of computer models. Results will be useful for a wide range of individuals and groups. The budget is modest. The proposal is recommended for support.